Bayesian Process Convolutions for Non-stationary Modeling

Abstract
PROPOSAL NO.: 0504851
INSTITUTION: U of Cal Santa Cruz
NSF PROGRAM: STATISTICS
PRINCIPAL INVESTIGATOR: Lee, Herbert
TITLE: Bayesian Process Convolutions for Non-stationary Modeling
RATING: Very Good

The investigators will apply process convolution modeling techniques
to non-stationary data in new ways. Convolutions are used both for
their theoretical elegance and their computational efficiency. The
first focus is on the spatio-temporal setting, with exploration of
different approaches to applying convolutions to the problem. Both
theoretical and implementational aspects will be addressed. The
second focus is on partitioned processes, starting in the spatial
setting and moving on to spatio-temporal problems. Partitioning is a
computationally effective method for dealing with non-stationarity,
and combined with the convolution approach allows for practical
modeling of much larger datasets than can traditionally be analyzed
with a non-stationary model.

This work is on new statistical models for processes that vary over
distance and time, possibly varying in an irregular fashion.
Motivating examples come from environmental science (such as
understanding rainfall and other environmental variables, and
validating computer models for climate simulations) and aeronautical
engineering (modeling of computational fluid dynamics simulators, such
as flight simulators). Such complex processes can be difficult to
model well, as complicated models can be too difficult to use while
simpler models fail to fit well. This work involves models which are
sufficiently powerful, yet also practical to use for larger datasets.
Success will impact not just the realm of statistical modeling, but
more importantly will help advance research in the fields of the
applications, in particular environmetrics and aeronautical
engineering.